A Process Definition Language For Guiding Multiuser Design

Effective processes are of fundamental importance to manufacturing,
government, engineering, and management. In all of these areas greater
understanding and control of key processes can lead to improved
effectiveness. For the past 15 years, it has also been recognized that
processes are fundamental to software development, and that effective
control of processes can lead to similar benefits, such as improved
understanding, coordination, efficiency, and automation. It has been hoped
that this would lead to reductions in software development cost,
improvements in software product quality, and reductions in software
development time. Our hypothesis is that progress towards these goals can
be speeded by establishing a scientific basis upon which to build the
process technologies that will support more effective software production.
This research project will lead to the development of needed improvements
to the Little-JIL process definition language, and the Juliette
interpreter. These improvements will be validated by programming and
running multiuser, iterative software design processes that are effective
in integrating the activities of humans and computer automation. These
processes should be of considerable value in themselves. Their
development, moreover, will sharpen and validate the Little-JIL process
language, resulting in clearer understandings of the underlying
requirements for effective process definition languages.